Phytoremediation of Soil Radon: Quantification and Modelling

9610176 Lewis This is an award to support research on the potential of using phytoremediation for removal of radon from soil surrounding buildings as a step toward reducing the pollution of indoor air from this radioactive gas. The objectives of this project are to determine the amount of radon that can be removed from soil by vegetation and to develop a soil-plant-atmosphere radon transport mathematical model that may provide additional insights into the mass and diffusional transport of water-soluble gases by plant vascular systems from soil to air. This laboratory study involves experimental simulation of the soil-plant-concrete basement system typical of constructed buildings by physical models placed inside plant growth chambers with controlled temperature, light and relative humidity. Quantitative determination of radon relating to controlled variables will provide the basis for development of the simulation model. Results of this project are expected to provide insights into the potential for reduction of radon levels in residences. An expected product is a determination as to whether a field-scale investigation is warranted, a step that would be needed to translate knowledge to be gained into procedures for engineering and architectural design of new buildings and addressing radon pollution of existing structures. ***